PostDoctoral Research Fellowship

This award is made as part of the FY 2020 Mathematical Sciences Postdoctoral Research Fellowships Program. Each of the fellowships supports a research and training project at a host institution in the mathematical sciences, including applications to other disciplines, under the mentorship of a sponsoring scientist. The title of the project for this fellowship to Kimberly Ann Klinger Logan is "Intersections of Number Theory and String Theory: Differential equations in automorphic forms applied to zeros of L-functions and graviton scattering." The host institution for the fellowship is Rutgers University and the sponsoring scientist is Stephen D. Miller.